CRCD: Curriculum Development in Systems for Smart Communications

This award provides funding for a three-year Combined Research-Curriculum Development (CRCD) program, entitled "Curriculum Development in Systems for Smart Communications," at Villanova University, under the direction of Dr. Robert H. Caverly. The overall objective of this project is to develop a series of educational concept modules covering basic and advanced topics in smart communications technology that overlap not only the principal investigators' research but also the "best practices" in the field.